Minority Graduate Assistantship - Kim Katrina Burson

Kim Katrina Burson has been awarded a Minority Graduate Assistantship in Chemistry. The Minority Graduate Assistantships in Chemistry are viewed as an infrastructural investment designed to broaden the participation, knowledge, and experience of students who are members of minority groups underrepresented in Chemistry, and attract them into meaningful careers in chemical research and teaching. %%% Ms. Burson's baccalaureate degree is from San Jose State University. She graduated with a GPA of 3.90/4.0 and is considered to be one of the top 2 or 3 students they have had in the past 5 years. She has been accepted in the Ph.D. program at Stanford University where she intends to specialize in Physical Organic Chemistry.